Travel and Administrative Services in Support of Domestic and International Science and Engineering Activities

The objective of this contract to American Express is to provide to the Divisions of International Programs (INT) and Ocean Sciences (OCE) a full range of travel and conference support services in connection with their international science and engineering activities. In particular: 1) travel services, covering transportation arrangements, visas, and related administrative details for visiting American and foreign scientists and engineers under the auspices of INT and OCE programs; 2) escort and interpreter services; 3) travel support services for visiting foreign delegations and U.S. scientists and engineers to attend NSF-associated meetings; 4) arrangements for health insurance coverage for foreign travelers visiting the U.S. on short term visits under INT and OCE programs; 5) logistical arrangements and related support for meetings, workshops, and conferences involving U.S. or foreign scientists and engineers. The Contractor, American Express, will provide travel and travel- related services as well as conference and meeting support as directed by NSF by means of authorized work orders.